Renovation of Electron Microprobe Laboratory at The University of Tulsa

9402270 Michael In this proposal the PI will upgrade the electron microprobe at the University of Tulsa. They have an old and heavily used probe (ARL SEMQ) and they want to upgrade the automation and add a digital imaging system.